CSUMS: Information and Decision Algorithm Laboratories (IDeA Labs)

This project furthers the development of a network of interdisciplinary student-focused research laboratories that explore algorithmic decision processes from a common mathematical framework of information, dynamics, and control. These "Information and Decision Algorithm Laboratories", or "IDeA Labs", form a research model designed to demonstrate the power of mathematics to students by allowing them to abstract fundamental concepts such as approximation, optimization, and control from a diverse set of application domains. Each of these laboratories house research projects, invite collaborations, facilitate interaction with other research groups, and encourage partnerships with industry. Nevertheless, all the projects are focused abstractly on algorithmic decision processes and introduce students to the common mathematical themes underlying these problem areas.

Algorithmic decision processes are ubiquitous, arising everywhere from the strategies deployed by corporations to investment decisions made by fund managers, and from regulatory signals deployed in metabolic networks to policy decisions made by governments. The purpose of this work is to cut through the jargon of particular disciplines and reveal to students the common mathematical and computational structures behind algorithmic decision processes through bona fide research experiences in a variety of disciplines.